Development and Evaluation of a Multimedia Instructional Package for Astronomy

Astronomy (11) The project is developing a prototype and evaluating
Interactive Astronomy, a multimedia instructional package for a widely taught undergraduate
science course: Introductory Astronomy for Non-Science Majors. This course serves a great
number of college students, including many future teachers, and has great potential for improving
their science skills and influencing their understanding of and appreciation for science.
The multimedia package includes software which incorporates two
innovative elements: the revolutionary improvements in instruction offered by information
technology, and the emerging paradigm of inquiry-based learning. Utilizing the high degree of
interactivity which computers make possible, students are led to discover things for
themselves, as opposed to learning them passively. Utilizing the dynamical simulations which
computers make possible, students can live in the world of science, yielding a vivid experience
of its normally abstract world. Two important elements of the package are
Guided Discoveries, which are extensive, highly interactive instructional exercises, designed
with careful attention to pedagogical issues; and Intelligent Tutors, which customize their
instructional strategies, based on an assessment of the student's learning needs.
Design of seven of the Discoveries has already been completed. In this project, three are being
fully implemented, and then a proof of concept test is conducted of their effect on student learning.
This formative evaluation (to be conducted in the Fall at Greenfield Community College and
Amherst College, and in the Spring at the University of Massachusetts) runs parallel to, and
be interactive with, further software development.